CS10K:CS1C@OC-Building a Local Area Network of Computer Science Teachers

The University of California Irvine (UCI) project, called CS1C@OC, will provide in-service teachers
in Orange County (OC), California a program of study that will satisfy California's new teacher
certification pathway in Computer Science. Despite the demonstrated need for students to learn
foundational computer science skills, few K-12 students have access to rigorous CS courses. CS
remains privileged knowledge, and improving access to this knowledge is one of the major
economic security and social justice issues of the 21st century. The CS community has struggled to
overcome issues of access and equity, although some enormous strides have come in teaching tools,
pedagogies, and standards. But none of these accomplishments can be broadly implemented or
sustainable without certification pathways for CS teachers and teacher preparation programs,
especially for those teaching in underserved communities. CS1C@OC will develop such a CS
teacher preparation program, specifically for California's new CS Supplementary Authorization.

CS1C@0C aims to (1) increase in-service teachers' CS content knowledge and their competence and
confidence in evidence-based pedagogical practices for teaching computer science to diverse
learners; (2) increase diverse students' knowledge and skills in computational thinking and
computer science principles as well as their interest in taking more CS courses; and (3) increase the
capacity of Orange County schools to provide CS courses. CS1C@OC will recruit and train 100
secondary school teachers--our share of the CS10K project (OC has approximately 10% of the
nation's population)--largely from low-income communities serving underrepresented
populations, with preference given to teachers who, along with their school, make a commitment to
teach Exploring Computer Science (ECS) and/or Computer Science Principles (CSP). UCI will
provide summer courses in CS content and pedagogy that will satisfy the requirements for
California's newly-approved Computer Science Supplementary Authorization (which PI Richardson
proposed and developed along with the California Commission on Teacher Credentialing) while
emphasizing CS instructional approaches that have proven successful with females and students
from low-income, underrepresented communities. The project will also develop a hybrid
professional learning community (PLC) for participating teachers and including existing OC CS
teachers, so they can share information and experiences, continue to learn from each other, and
have further opportunities to develop themselves both personally and professionally throughout
the school year. The project will evaluate impact on teacher learning and development as well as
impact on student learning and attitude changes.